Molecular Mechanisms of B Cell Activation and Desensitization

9317027 Coggeshall The objective of this research is to determine the molecular basis of B cell activation and the inhibition of proliferation by co- crosslinking sIg and the Fc gamma receptor. Experiments focus on early events resulting from surface Ig triggering: activation of the various sIg-associated tyrosine protein kinases (TPK) and phosphorylation of specific substrates. Recent findings from this laboratory indicate that B cells predominantly express and undergo receptor-triggered tyrosine phosphorylation and membrane translocation of a unique isoform of phospholipase C (PLC), PLC gamma 2. While tyrosine phosphorylation of PLC gamma 1 is an important feature of signal transduction for many receptors, B cell sIg is the only known receptor linked to PLC gamma 2. Using ex vivo B cells and B cell lines, experiments will be done to study the mechanism linking tyrosine phosphorylation to PLC activation. Specific goals are: 1) to define the regulation of PLC gamma 2 enzymatic activity by tyrosine protein kinses, 2) to establish the molecular basis of Fc gamma receptor-mediated inhibition of B cell proliferation, and 3) to study the relative roles of phospholipase C gamma 1 and 2 in sIg-mediated cell activation. The results should define, in biochemical terms, the earliest events following sIg stimulation and shed light on the molecular mechanisms involved in inhibition of B cell proliferation mediated by the Fc gamma receptor. %%% Cells receive important biological signals by means of receptors on their surfaces. These signals are then translated ("transduced") through cascades of biochemical events to alter the cell's physiological state or affect the expression of specific genes. Cells have many different receptors for biological signals and the receptors can be classified into different types based on their structures and the types of biochemical pathways they trigger. Identifying the critical components in the sequence of biochemical events tri ggered by cellular receptors is an area of active research. The goal of this research is to work out the biochemical details of the early steps in the signal transduction pathway following the binding of a foreign material (antigen) to specific receptors on the surface of certain cells of the immune system (B lymphocytes). This pathway of cellular signaling leads to proliferation of the responding cells and ultimately to production of specific proteins (antibodies) that bind the antigen and promote its removal from the body. ***